Nineteenth Latin American Symposium on Mathematical Logic

This award supports the attendance of US-based researchers at the Nineteenth Latin American Symposium on Mathematical Logic (the Simposio Latino Americano de Lógica Matemática, or SLALM) at the Universidad de Costa Rica in San Jose, the capital of Costa Rica, on July 26-30, 2022. The SLALM series meetings have been held intermittently since the 1960's, usually every two to four years, always in Latin America. These meetings have been instrumental in the growth of the discipline of logic in the region during that time and in encouraging cooperation between the logic communities in North and South America, as researchers from the US and Canada frequently attend the SLALM. With the expansion of this contact has come fruitful exchange: the very top ranks of logicians in the U.S. include researchers born in Brazil and Uruguay, while U.S.-born logicians have taken permanent jobs in countries such as Colombia, and a substantial further number of researchers have traveled between the regions for postdoctoral positions.

This award supports the participation of as many as eighteen US-based logicians at the 2022 SLALM, with an emphasis on students and junior researchers, and with preference for researchers from groups underrepresented in mathematics. The award is administered by the Association for Symbolic Logic, which has supported the SLALM series since its inception. The 2022 SLALM includes plenary talks, four mini-courses, and five thematic sessions: computability; model theory; non-classical logics; philosophy of logic (with philosophical logic); and set theory. The special sessions include prominent invited speakers and contributed talks in which younger researchers will have the opportunity to present their work.

SLALM website: https://paginas.cimpa.ucr.ac.cr/slalm/index.php/en/
ASL website: https://aslonline.org/